SBIR Phase I: A New Class of High-conductivity Solid-state Composite Electrolytes for Next-generation Lithium Batteries

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project is to enable high-performance, safe, lithium-based batteries; a $40B market today and growing rapidly driven by the needs of electric vehicles and grid-based storage. This project will develop a safe (non-flammable) electrolyte that can operate at both high voltages (for increased battery capacity) and high temperature (for rapid charging). The proposed electrolyte is a drop-in replacement in today’s manufacturing infrastructure. Key experiments will allow the team to develop a fundamental understanding of the materials properties and allow it to circumvent crucial performance limiters. As an enabler for an all solid-state battery, the innovation will improve performance of electric vehicle batteries at reduced costs, accelerating the rate of penetration of US-made electric vehicles and power trains in world markets.

This Small Business Innovation Research (SBIR) Phase I project will develop, test, scale-up, and begin commercialization of a next-generation solid-state composite electrolyte for inherently safe, high-performance lithium-/lithium-ion batteries. The electrolyte should have high electrochemical stability, high ionic conductivity, high thermal stability, a high lithium transference number, low interfacial resistance, and will be inherently non-flammable. Full cells >200 mAh will be constructed and performance tested. During the Phase I effort, NextGen will demonstrate that its new electrolyte will meet the conductivity, temperature, safety, etc. goals for advanced electrolytes required by early market adopters. The project has four key tasks: (1) ceramic materials synthesis and characterization, (2) blending with a polymer to form a thin, pinhole-free composite solid-state electrolyte system to achieve simultaneously a high ionic conductivity and a low resistance interface with the cathode/anode materials, (3) electrochemical and thermal characterization of the composite electrolyte system, and (4) assembly and test of full cells to demonstrate that the electrolyte meets the system performance requirements.